Research Initiation Award: Multidisciplinary Design Optimization Development and Application in Electronic Package Design

In this research two new general purpose algorithms for multidisciplinary design optimization will be fully developed and implemented in application to electronic package optimization. In one algorithm second order system sensitivities will be generated using local second order design sensitivities generated concurrently during subsystem optimizations. The concurrent subsystem optimizations and local sensitivity calculations will be implemented in parallel to achieve greater efficiencies. The algorithm provides a computationally inexpensive procedure for quantifying subsystem interactions as compared to previous algorithm proposals. The second algorithm will use neural networks to build approximations of the system design space. The use of neural networks to represent the design space moves the multidisciplinary design optimization strategy away from the point design techniques used in previous algorithm proposals. The neural network will be trained using data that is accumulated during concurrent subspace optimizations. The algorithms will be developed as general purpose design optimization tools for application to a variety of complex coupled multidisiplinary systems. Electronic packaging design is an area where immediate benefits can be realized through the application of multidisciplinary design optimization. In multidisciplinary design optimization the complex couplings between subsystems are formally quantified and exploited in a concurrent design process. //